Regulatory Enzymes of Amino Acid Metabolism in Maize

Regulatory Enzymes of Amino Acid Metabolism in Maize: The functional properties and biosynthesis of two isozymes of L- homoserine dehydrogenase from corn will be studied. One of the isozymes, located in the chloroplast, is regulated and the other, located in the cytoplasm is apparently unregulated. DNA probes will be developed in order to analyze enzyme regulation at the level of gene expression. Antibodies to the chloroplast enzyme will be developed to establish whether the two isozymes share antigenic determinants, to facilitate use of an expression vector and to provide information on the nature of in vitro translation products. Successful completion of these studies will contribute to an understanding of the regulation of biosynthesis of nutritionally essential amino acids by higher plants. This information is essential for genetically engineering plants to produce high quality proteins. It will provide insights into differences between eukaryotic and prokaryotic organisms in the molecular mechanisms used to regulated similar metabolic pathways.